CONFERENCE: Mechanisms of Secretion, Woods Hole, MA, September 4-6, 1997

IBN-9722886 Mechanisms of Secretion (Conference) PI: Thomas F.J. Martin, University of Wisconsin co-PI: George J. Augustine, Duke University This application seeks funding for an international research conference on Mechanisms of Secretion. Function in the nervous and endocrine systems requires chemical communication between cells. Neurotransmitters bridge the gap between nerve cells whereas protein hormones delivered to the bloodstream trigger physiological processes in various tissues. Both types of chemical signals are released from cells by a similar process that involves the fusion of secretory vesicles with the plasma membrane. Understanding this process of membrane fusion and its regulation is the focus of much active research. Dramatic progress over the last 3-4 years led to the identification of several proteins that are required for neurotransmitter release. The discovery that very similar proteins are involved in many other intracellular membrane fusion events indicates that common principles govern membrane fusion. The goal of this conference is to bring together scientists at the cutting edge of this research for a lively and timely exchange of ideas on the recently- emergent general principles in membrane fusion, and to promote a translation of insights from biochemical, molecular and genetic research to understanding physiological mechanisms. The conference is sponsored by the Society for General Physiologists and will be held September 4-6, 1997 in Woods Hole, MA at the Marine Biological Laboratory as a small meeting (~250 participants). In addition to 20 speakers in 5 sessions plus a keynote speaker, posters will be presented at 3 sessions, and 8 short talks will be programmed in 2 New Ideas sessions. Accomodation awards to 10 grad students/postdocs will encourage participation by young scientists. Sessions will cover: second messenger regulation of secretion, proteins involved in secretion, vesicle pools in secretion, membrane fusion mechanisms and endocytosis. Dr. James Rothman will deliver the keynote address on "Mechanisms and machinery of intracellular protein transport."